Wetherill Symposium for Nuclear Superdeformation; Philadelphia, Pennsylvania; May 1-2, 1991

This grant to Drexel University will be used to support travel for international guests at a symposium on nuclear superdeformation. The symposium is scheduled to coincide with the awarding of the John Price Wetherill Medal of the Franklin Institute to Professor Peter Twin for his leadership in the discovery of nuclear superdeformation.